Replacement of X-Ray Diffraction Equipment

Two modern X-ray diffraction units will replace the present obsolete (40 years old) X-ray diffractometers in the Materials Science and Engineering Department at Stevens Institute of Technology. These diffractometers will be housed in the newly renovated Stevens Materials Characterization Facility, along with state-of-the-art field emission TEMs and SEMs, and made available to the New Jersey Technological Community. One of the diffractometers will be a limited resolution unit with automatic sample exchange that will be used for undergraduate instruction in Steven's computer-oriented courses and for graduate student training. The second diffractometer will have a grazing angle thin film attachment for crystallographic texture and stress analysis of thin film materials and will be dedicated for research on the crystallization of thin film, electrochemically deposited coatings, tribochemical reactions in ceramics, and the chemical vapor deposition of ceramic coatings and superconducting materials. The availablity of the new X-ray diffraction equipment will improve data acquisition and enable improved quantitative analysis. Finally, the proposed new equipment will have the most modern safety equipment, thereby insuring the safety of students using the Material Characterization equipment.